Neuropeptides and Receptors for Bombesin/GRP

Bombesin-like peptides play a pivotal role in both normal and pathological processes in the mammalian central nervous system (CNS). This class of neuropeptides are potent hypothermic, hyperglycemic and satiety agents and they also alter pituitary hormone secretion as well as behavior. Bombesin stimulates turnover of dopamine, an important neurotransmitter in schizophrenia, Huntington"s and Parkinson"s disease. Although it is clear that bombesin-like peptides are biologically active in the CNS, its precise physiological role remains unknown. Dr. Moody hypothesizes that bombesin-like neuropeptides alter the growth and/or development of brain cells. During his previous National Science Foundation support, Dr. Moody reported the presence of high affinity receptors in discrete brain regions. He will now characterize and determine the regulatory role of bombesin-like peptides and their receptors in CNS. He will evaluate the possibility that receptors for these neuropeptides regulate cell growth by examining effects on neural transplants, development and human cultured cells. In addition, Dr. Moody plans to solubilize and purify the bombesin-like neuropeptide receptors and then generate specific monoclonal antibodies. Interestingly, high levels of receptor have been localized to some types of cancer cells and bombesin-like peptides stimulate the growth of these malignant cells. Thus, understanding the various effects and mechanisms of action of these neuropeptides could lead to important breakthroughs as well as the development of new therapeutic approaches in the cancer field.